NECO: Robust, Delay-Tolerant Sketches for Aggregating Sensor Data Streams

NeTS-NECO: Robust, Delay-Tolerant Sketches for Aggregating
Sensor Data Streams

Emerging data-intensive mobile sensor networking applications promise
a close observation of the world around us at a relatively low data
acquisition cost. In these applications, it is a challenge to
aggregate observation streams from distributed sources, due to the
bandwidth and delay constraints of the network, and the energy costs
of data transmission. This project develops techniques for processing
voluminous sensor data streams within the resource constraints imposed
by a distributed infrastructure-less network.

Techniques are designed to summarize the observation streams into
small space "sketches". By disseminating sketches rather than the raw
data, it is possible to trade-off reduced communication cost for
approximate answers to user queries. The project investigates the
technical challenge of making the sketches robust and suitable for
transmission over unreliable links. The sketches are delay-tolerant,
i.e. they can tolerate long and variable network latencies. Various
classes of queries are supported including: basic aggregates of
numerical and categorical data, multi-dimensional temporal and
geographic aggregates, and time-decayed aggregates. The design of
sketches is informed and inspired by the recent rapid progress made in
the area of massive data stream processing. The project will result in
new algorithms and data structures for sketching sensor data with
provable guarantees on the quality of answers. The research is
expected to benefit data-intensive sensor networking applications that
are critical to our society, such as earthquake, pollution, and
traffic monitoring.